Future Supply of Faculty in Engineering - Workshop Organizedby Engineering Deans Council ASEE

Based upon important concerns, a workshop will be conducted to develop a strategy that will supply the required number of quality faculty in engineering for the future. The group with the most involvement with this problem is the deans of U.S. engineering schools. The deans are organized within the American Society for Engineering Education (ASEE) into the Engineering Deans Council (EDC). The number of U.S. students pursuing engineering doctorates is inadequate to meet the industrial, governmental, and academic needs of the Nation. The deans will address the problem of increasing the number of quality U.S. students who pursue engineering doctorates and seek faculty careers. The plan is to gather the available data, explore alternative possibilities, and hold a workshop to anlayze the problem and develop possible solutions.